Frequency Domain Control Design for Flexible Systems

The proposed project addresses the transition from theory to application of an approach to H00-control design based on skew Toeplitz theory. The theory will be used as a new means for investigating control problems for flexible systems. The control problems to be considered are similar in spirit to those studied previously for finite-dimensional systems. A significant difference is that the Laplace Transforms of distributed system components, not finite-dimensional approximations of them, will be used in the control design process. Recent theoretical advances have been made to address control problems for distributed systems subjected to perturbations. The proposer and her collaborators have applied the theory to problems of controlling the vibrations of ideal, flexible beams subjected to an uncertain feedback time-delay and other perturbations. Their beam studies suggest that applying the theory to more sophisticated control problems for flexible systems is feasible. It is proposed that flexible systems be analyzed in the frequency domain, pertinent H00-control problems be formulated and solved, and computer experimentation with optimal and sub-optimal designs be conducted. This will also include the development of supporting computational methods and software.